Coastal Quest: Developing a Learnscape Approach for Edutourism

This planning project seeks to study new ways to tap into family vacation agendas as opportunities for increased learning. It will assess and prototype a variety of program development activities related to outdoor and indoor experiences for families on vacation to the Grand Strand coastal region of South Carolina, and potentially to other such vacation spots around the country. Such experiences are intended to facilitate family learning about coastal ecosystems. The planning work is a collaborative effort among professionals in university and museum organizations along with the Myrtle Beach Area Convention and Visitors Bureau.